Models of Learning in Economics

9310009 Ellison This research consists of three projects which examine economic systems in which a large population of economic agents try to learn from their past experience. The first two projects concern agents who frequently interact with others in strategic situations, and explore whether they come to play the game by accumulating experience about how their opponents have played in the past. The first project explores the plausibility of mixed strategy equilibria where players are heterogeneous because of differing experience. The second project explores a fundamental assumption of many models of learning, and argues that because of the dynamics of the interactions, learning is more likely to lead to some equilibrium outcomes than to others. The third project studies agents choosing between competing technologies whose problem is a social one only because they can gain information by looking at the choices of others. The research focuses on the implications of very simple behavioral patterns in models which may be applied to such problems as the choice of farming technologies and the structure of labor contracts. ***